Sequential Stochastic Decision Processes II

The project described in this proposal consists of five research issues in the general area of Sequential Stochastic Decision Processes. Four of the issues focus on two established lines of research in Markov Decision Processes and Sequential Stochastic Games, respectively. For the former class of models an approach to the analysis of the "risk- sensitive" versions of these models is suggested. For the latter class, the project focusses on the issues of characterization and computation of "stationary equilibrium strategies". For both classes of models, successful resolution of these research issues would be likely to increase their appeal as modeling tools in applications. Furthermore, the first research issue proposes a method of embedding the famous "Traveling Salesman Problem" in an appropriately constructed (and then perturbed) Markov Decision Process. It is expected that this new way of viewing the traveling Salesman Problem will lead to useful computational procedures and theoretical insights. An important objective of this project is the demonstration that all of the above research issues can be analyzed with the help of a conceptually unified approach. Namely, by formulating the respective subproblems as mathematical programs which in turn should be solved by a combination of mathematical programming techniques, and the relevant dynamic programming/game theoretic techniques. This research concerns certain types of sequential stochastic decision processes: such processes are used in modeling a wide variety of engineering problems in manufacturing, power systems and economics. An objective of this project is to show that numerous research issues associated with sequential stochastic decision processes can be analyzed by formulating them as mathematical programs. It is expected that this research will lead to better algorithms for solving these problems.